Experimental Elementary Particle Physics

The Syracuse University, SU, group has played a major role in all aspects of the study of e+e- collisions at the Cornell Electron Storage Ring, CESR. This collaborative work began more than a decade ago and is expected to continue in the future. The new CESR/CLEO II detector, combined with the ultra high luminosity of CESR, and excellent scientific collaboration constitutes the best research center in the world for studying the heaviest quark presently known, the b quark. Understanding the physics of the b quark is one of the most important research objectives in particle physics today. The research advantage at CESR/CLEO II is expected to exist for several more years. In the next few years, the CESR luminosity is expected to become a factor of 20 higher than the DORIS machine at DESY in West Germany. (DORIS is the only other facility in the world presently capable of doing b physics.) The field of research is that of experimental elementary particle physics. This research studies the basic building blocks of matter (e.g., electrons, positrons, quarks and weak bosons) at very high energies. The experiments use accelerators (colliders) which provide the highest energy particles made in the laboratory. The data is collected and analyzed using highly complex and sophisticated apparatus and techniques.